Combined Research-Curriculum Development (CRCD) in Geoenvironmental Engineering

This award provides funding for a three-year Combined Research-Curriculum Development (CRCD) program, entitled "CRCD in Geoenvironmental Engineering," at Kansas State University, under the direction of Dr. Lakshmi N. Reddi. The overall objective of this project is to develop a research-integrated curriculum in geoenvironmental engineering to serve the needs of senior-level undergraduate and first-year graduate students in allied science and engineering disciplines.